CISE Educational Infrastructure: MULTI: Multimedia User- interface Laboratory for Teaching and Instructional MaterialDevelopment

This award is for the development of an interdisciplinary undergraduate curriculum in multimedia, user interfaces, and computer-human interaction. Six new undergraduate courses will be developed covering user interface development, human information processing, computer graphics, computer-supported cooperative work, scientific visualization and human factors in Interface design. This curriculum development is a collaborative effort between the Department of Computer Science and the Department of Psychology. An R&D laboratory will be established to develop software and course materials needed to support the new curriculum. Each course development will include a CD-ROM with a printed monograph. All educational materials will be made available to other academic institutions and results of the project will be presented at professional workshops and conferences. SUNY, Stonybrook proposes to develop an interdisciplinary undergraduate curriculum in multimedia, user interfaces, and computer-human interaction. This will be a collaborative effort between the Department of Computer Science and the Department of Psychology. Course materials, software, a set of monographs and CD-ROM's , which will be produced as part of the project, will be widely disseminated in the academic community. The results of the curriculum and materials development will be disseminated through publications, and presentations at professional meetings.